RUI: Tropical Forest Resource Management Along Deltaic Estuaries

Concerns about global warming and the loss of biological diversity have focused attention on development processes in tropical forests, which traditionally have been the locations of a large share of the world's biomass and of many of its plant and animal species. Recent research by geographers, anthropologists, and other social and natural scientists has helped improve understandings of the processes by which humans and natural systems interact with each other. Of special interest have been the impacts of different types of economic activities and land-use practices on forests. This project will examine the economic potentials and ecological viability of traditional farm- and forest-management practices of indigenous residents along the estuary of the Amazon River west of Belem in Brazil. The spatial structure of different management practices will be mapped using data from satellite images, and field observations will be used to measure the sizes and patterns of tracts worked by individual households. Additional information about the economics of indigenous management practices will be gathered through participant observation, questionnaire responses, interviews with household members, and data gathered by local informants. This project will contribute to greater knowledge about the ways that agricultural changes affect traditional indigenous resource-management and land-use practices in the lower Amazon basin and in other similar locales. In addition to enhancing understandings of interactions among human and natural systems, the conclusions of this project also should provide considerable information of use to managers trying to determine what forms of tropical forest development will improve the economic standing of local residents without harming the natural environment.